Expression of Mammalian cAMP-Dependent Protein Kinase in Yeast

The long term goal of this project is to characterize the structure and function of cAMP dependent protein kinase. This is an enzyme that is ubiquitous in eukaryotes and one that plays an important role in the regulation of cellular proliferation. The inactive holoenzyme is a tetramer comprised of two catalytic (C) subunits and two regulatory (R) subunits. cAMP binds the R subunit and activates the enzyme by dissociation of the complex into two C subunits and an R subunit dimer. The C subunit functions to phosphorylate a number of protein substrates, thereby altering their biochemical properties. Although the function of the enzyme is known, the relationship of structure to function is poorly understood. The PI's laboratory has been approaching this problem through the isolation and characterization of mutants in cAMP-dependent protein kinase from the yeast, S. cerevisiae. This proposal expands the scope of his experiments to study the mammalian cAMP-dependent protein kinase. The mammalian C subunit will be expressed in yeast in order to exploit the advantages of yeast as a system to conduct sturucture/function studies. In order to define the experimental system, the catalytic subunits from S. cerevisiae will be purified and compared with the mammalian C subunit. Three genes, TPK1, TPK2, and TPK3, encode catalytic subunits C1, C2, and C3, respectively. The purified proteins will be compared biochemically. Genetically defined strains containing only one of the three TPK genes will be characterized biologically. Specific substrates recognized by the individual catalytic subunits will be identified. The cDNA encoding the mammalian Cx subunit will be expressed in yeast using yeast promoters. The yeast catalytic subunit will be replaced with the mammalian catalytic subunit in vivo. The biochemical and biological properties of yeast cells containing the mammalian catalytic subunit will be compared with cells containing the natural catalytic subunits. If these studies are successful, future experiments will exploit yeast genetics to obtain mutants of the mammalian enzyme. These mutants will be used to study the structure and function of the mammalian C subunit. Protein kinases are enzymes that regulate other enzymes by adding phosphate groups to the latter, thus turning them on or off. A large group of the protein kinases in turn are regulated by cyclic AMP, and the levels of the latter are regulated by external factors such as hormones or virus infections. Thus the protein kinases are a very important set of enzymes to study to further our understanding of how cell metabolism is regulated. The PI will purify and characterize three such enzymes from yeast and one from mammals which he will express in yeast.//